ITR/EAR Proposal for Developing a Distributed Computing Infrastructure for Computational Thermodynamics with Applications to Geochemistry and Petrology

0218634
Ghiorso

This Information Technology Research Program grant supports the development of a distributed computing infrastructure in computational petrology. The computational model calls for the development of highly optimized and rigorously tested server code that will be built to perform basic level phase property/stability calculations. This code will be published as an Application Programming Interface (API) and distributed via a CORBA IDL to client machines on the Internet. Remote users will access the server in one of two ways: either as remote procedure calls from user written clients, or by downloading clients developed in conjunction with the server code effort that are designed to solve specific problems. Clients will be written to address the needs of both the research and the teaching community. Extensive documentation and tutorials will be produced.

***